Dynamic Systems and Controls Division Student Travel Grant: 2005 American Society of Mechanical Engineers International Mechanical Engineering Congress and Exhibition

Abstract
0604754
PI; Hanz Richter
Cleveland State University

This grant will support student's travel to attend the 2005 ASME International Mechanical Engineering Congress and Exposition in Orlando, November 2005.
The objective is to enable students' in-person exposure to the state of the art of the subject areas of dynamic systems and control, and sensor technology. Through their personal participation, their will also learn skills for making oral presentation of technical nature, as well as interacting and making exchange with active senior researchers in the field.

This a travel grant for student out-reach.